NSF Young Investigator Award

This research includes studies on the effect of coarsening, grain growth and particle packing on densification, defect formation and constitutive parameters, and reactive processing of composites and constrained films. Sub-critical mechanical properties (e.g. fatigue and creep) of ceramic composites and multilayered systems including film-substrate assemblies will also be determined.